Industry/University Cooperative Research Center for Power Systems Engineering - New Research Site

ABSTRACT EEC-9813407 BOSE The power industry must undertake a managed redesign of the Nation's power system so that it can adopt to deregulation and to rapid changes in the power requirements and economic conditions. A planning grant, EEC-9725138, was awarded to Washington State University to determine the feasibility and viability of becoming a research site associated with the Industry/ University Cooperative Research Center (I/UCRC) for Power Systems Engineering. The Washington State University has met the I/UCRC Program requirements to become the fifth university in this multi-university center involving Cornell University, the University of Illinois-Urbana-Champaign, the University of Wisconsin-Madison and the University of California-Berkeley with Howard University as an affiliate. The new research site's agenda will initially address 1.) Nonlinear Analysis and Control of Oscillations, 2.) Strategies for Price-based Unit Commitment, 3.) Corona Streamer for Design of High Voltage Hardware and 4.) On-line Dynamic Security Assessment.